Research Experiences for Undergraduates in Chemistry at Colgate University

Dr. Quang Shen and other members of the Chemistry Department at Colgate University are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects in the areas of inorganic, organic, physical, and polymer chemistry, as well as biochemistry. Students work side by side with their mentors, meet weekly as a group, present final written and oral reports to the department, and present their work at their home institution and at a national research conference.